Draw Resonance in Film Casting of Viscoelastic Fluids

This work involves both theoretical and experimental studies of certain phenomena in film casting. A procedure for manufacturing polymer films involves extrusion of polymer melt through a narrow channel called a slit die and then take-up by a cylinder called a chill roll (which quenches and solidifies it). Take-up velocity at the chill roll is faster than extrusion velocity and the molten film is thus stretched. Ideally, the final film produced is of uniform thickness, but often some flow instability occurs and the product instead has periodic sustained oscillations in film thickness, even though the extrusion velocity and the take-up velocity are kept constant.